Enumerative, Algebraic and Topological Combinatorics

John Shareshian works on problems in algebraic, topological and
enumerative combinatorics that have close connections with other areas of
mathematics. Alone, in joint work with Michelle Wachs and in additional
joint work with Philip Hanlon and Patricia Hersh, he studies group actions
on homology of order complexes of various partially ordered sets, with
applications to permutation enumeration and representation theory of
symmetric groups and finite groups of Lie type. In joint work with David
Wright, he studies certain vector spaces with bases indexed by finite
trees, which arise in the study of the Jacobian Conjecture.

This grant supports work in the area of combinatorics. Roughly,
combinatorics is the study of discrete, usually finite, mathematical
objects. Combinatorial problems arise naturally in various scientific
disciplines, including biology, computer science and electrical
engineering, and in most areas of pure mathematics. Most of the work
specifically supported by this grant involves the study of symmetries of
partially ordered sets. A partially ordered set is a set in which some
(but not necessarily all) pairs a,b of elements are related in a manner
that mimics the relation a<b on the set of real numbers. (For example,
if a,b are related and b,c are related then a,c must be related.) A
symmetry of a partially ordered set is a rearrangement of the set which
sends related pairs to related pairs. (For example, if we take the set of
all real numbers with the usual < relation, then the rearrangement
obtained by sending each number x to x+1 is a symmetry, while the
rearrangement obtained by sending x to -x is not.) Partially
ordered sets and their symmetries are of interest to mathematicians
working in several areas of pure mathematics, including topology and
algebra. They have been used to attack difficult problems in theoretical
computer science.